REU: The Nature of Nutrient Limitation in Ecosystems

This project will examine the nature of nutrient limitation at the level of ecosystem function. The hypothesis that the degree of nutrient limitation in an ecosystem depends not only upon the fertility of the site but also upon the responsiveness of the vegetation that occupies the site and upon the potential of soil microorganisms to immobilize nutrients will be tested. The response to nitrogen addition in two nitrogen-limited ecosystems (tundra and boreal forest) will be examined. Field experiments will determine the growth response of vegetation to large and small levels of nitrogen addition and the degree to which added nitrogen is immobilized by micro-organisms or absorbed by plants. Laboratory experiments will determine the potential of plants and soil microorganisms adapted to differing soil fertility to absorb nutrients. The extent to which soil microorganisms are energy- vs. nutrient-limited in ecosystems of different fertilities and the way in which changing energy/nutrient limitation affects nutrient immobilization or release will also be determined. The research should improve basic understanding of the nature of nutrient limitation in ecosystems and may provide insight into the question of why some ecosystems are so much more responsive to fertilization than are others. The latter question has considerable economic importance. The University of ALaska Taiga research group is excellent and highly productive. Facilities for the work are quite well developed as is the science administration environment provided by the Institute of Arctic Biology. The Ecosystem Studies Program enthusiastically recommends that this now three-year continuing award be made.